A Flexible Flatjack for Quantitative Evaluation of Masonry

The flatjack is an hydraulicly pressured bladder which will measure in-situ stress and modulus of elasticity of a masonry wall panel. The research will investigate the use of polymer materials with fiber reinforcement to develop the equipment. The equipment will be validated under known conditions of stress in test wall panels.